Coordination and Student Travel for the 2017 National Radio Frequency (RF) Ionospheric Effects Workshop; Denver, Colorado; May 14-17, 2017

This is an award to help support travel expenses for ten students to attend the Ionospheric Modification meeting that is scheduled to be held at the University of Colorado at Denver in early May, 2017.